Technical Support for the Minnesota Isotope Laboratory

94066183 Edwards This award provides partial funding for two technical support positions in the Department of Geology & Geophysics Minnesota Isotope Laboratory at the University of Minnesota. The technical work in the isotope laboratory is labor- intensive, involves maintenance of sophisticated instrumentation, requires extensive training of senior and student researchers, both on- and off-campus, and needs the full-time attention of dedicated technicians. The Minnesota Isotope Laboratory is involved in fundamental research to establish high-resolution global climate (glacial-to- interglacial time scales) and regional climate (century to decadal time scales) chronologies. ***